Toward a Unified Model for Heterogeneous Distributed Systems

The purpose of this project is to construct a unified formal model for the study of heterogeneous distributed systems. The approach will be to conduct a systematic study of methods for structuring distributed algorithms and their correctness proofs. Each of these methods will be carefully integrated into a single formal model so that it may be used in combination with the other methods in novel ways to describe complex systems. The result will be a unified model, based on the I/O automaton model of Lynch and Tuttle, that will be capable of describing a wide variety of distributed systems. As a test of this unified model, the project will develop an experimental programming language and simulator that will describe heterogeneous systems within the formal model and simulate executions of those systems. //